Second Annual Joint PI Meeting for the NSF BigData Research Program and the NSF Big Data Regional Innovation Hubs and Spokes Programs

The second annual joint Principal Investigators meeting for the Big Data program and the Big Data Hubs and Spokes program provides updates to progress on intellectual objectives and information sharing. The meeting will promote interaction between the participants in these programs, facilitate collaborations, expose students to the latest research, and situate the programs within the larger big data ecosystem.

The meeting will be a three-day meeting that includes one day dedicated to each program and a third day shared between the two. The agenda includes breakouts, panel discussions, lightning talks, and poster sessions to encourage intellectual engagement across the programs, thus setting conditions for new projects and multi-disciplinary activities. The meeting will produce a report that highlights outcomes for broader dissemination and sharing.